Tonal Acquisition of Sesotho

The investigator will spend 24 months examining the acquisition of grammatical tone by young children learning Sesotho, an African language which makes different use of tone than languages for which there have been previous tone- acquisition studies (Thai, Chinese, Japanese). Analysis will be within the theoretical framework of autosegmental phonology. Preliminary investigation indicates that some Sesotho grammatical tone constructions are only mastered after several years, contrary to expectations that acquisition of tone patterns should precede full mastery of a language's segmental phonology. Demuth has the advantage of excellent command of the language under investigation. The methodology of the project has been meticulously devised. The results of the research will provide excellent comparative material to be used with the earlier studies of far better-known languages.